Environmental Analysis for Civil and Environmental Engineering Technology

This project expands the laboratory instructional and training of undergraduate students in the areas of geotechnical analysis and design through the use of advanced geotechnical analysis equipment, electronic instrumentation, and laboratory sterilization equipment. This equipment involves design and analysis of soil substructures, facility design, municipal process design,, analysis data base management, project development, and documentation.